Industry/University Cooperative Research Center for Software Engineering

The SERC addresses the needs for software productivity and quality. It also provides a focal point for the exchange of ideas among industry and academia and serves as a direct infusion of these ideas, thereby accelerating technology transfer. SERC resources include over 50 faculty and 100 students at 9 universities working with practitioners from software intensive industries to solve software problems and advance the state-of-the-practice in software engineering.